Design, Research, Re-Design: The Next Generation of Curriculum Implementation Centers -- A Three-day Conference to be held in Annapolis, Maryland, July 2001

This conference grant will conduct and document a conference that brings together teams from the eight NSF funded Implementation and Dissemination Centers and key leaders from curriculum development projects, to share "lessons learned" as they have made efforts to increase the use of research-based curricula across the country. These are relatively new projects and there is great interest in them as possible vehicles for assistance to states and school districts. The conference, to be held in July 2001, is therefore extremely timely.

A white paper will be produced that captures successful approaches and strategies. This paper will be helpful to the field in providing documentation about successful and promising approaches to implementing curriculum reform.